Problems in Computational Algebra

This investigation is concerned with a number of important problems in computational algebra. These include algorithms for evaluating roots of polynomials, evaluating eigenvalues of matrices, polynomial interpolation, etc. Several questions related to lower bounds on the depth of computation trees will also be explored.